Vulnerability of East Antarctic Ice Streams to warm Ocean Water Incursions

Intellectual Merit:
This project will determine the potential vulnerability of key ice streams to incursions of warmer ocean water onto the continental shelf and if this mechanism could already explain any of the observed thinning of the ice sheet. It will provide important constrains on ice dynamic of the investigated section of the EAIS, and thus will be critical for future ice sheet models and provide mechanisms for EAIS contributions to past sea level high-stand. The PI proposes to investigate four key ice stream systems on the continental shelf between ~90°E and 160°E. They will use multibeam bathymetry to identify if and where cross-shelf troughs exist to help determine whether these troughs could provide potential pathways for warmer ocean water. Furthermore, detailed analysis of morphological features of these troughs could provide information on past ice dynamic, maximum extent, and flow direction of related paleo ice streams. The PIs will also conduct water column measurements along these troughs and on the continental slope to determine whether warmer ocean water could enter the shelf in the near future, or if such water has already entered any troughs, and thus might be causing the observed thinning of some ice streams.

Broader impacts:
This project includes the participation and support of undergraduate and graduate students in field work and data analysis. The possible involvement of a PolarTREC teacher and the Earth2Class teachers program will reach out to K-12 students.